Prehistoric Human Ecology on the Golfo Dulce, Southern CostaRica

During preliminary field reconnaissance in 1990, Dr. John Hoopes located 22 prehistoric sites on and around Golfito bay, Costa Rica. Ceramic and lithic artifacts indicate that these cover a time range from 500 B.C. to 600 A.D. Among the most important discoveries were two large shell midden sites with excellent preservation of organic materials. This is rare in wet tropical regions. Each of these sites contained high concentrations of well-preserved mammal, bird, fish and human bone in addition to shell. Large quantities of charcoal and pottery were also present. With National Science Foundation support, Dr. Hoopes will conduct excavation at both shell middens. He will collect samples of a wide variety of organic as well as inorganic remains. A team of specialists has been assembled to analyze these and it will place specific emphasis on those aspects which will permit reconstruction of prehistoric environmental and subsistence patterns. Lake core sediments will also be collected to allow placement of these sites into a broader paleoenvironmental context. Finally, a preliminary survey of local caves and rockshelters will be conducted to search for sites dating to the earliest periods of occupation of the region. While considerable archaeological attention has been focussed on the development of agriculture in temperate regions, relatively little is known about how human populations adapted in tropical areas. Yet it is clear that chiefdoms and complex societies developed in such regions in Middle America and the goal of this research is to learn about the subsistence base which allowed this to happen. It is also known that prehistoric groups in the American tropics utilized both root crops as well as maize, but it is not clear when the latter was adopted and the role it may have played in the development of social complexity. It is not lack of archaeological interest but rather poor preservation which has hampered research and what makes Dr. Hoopes sites so important is the excellent preservation of both faunal and floral remains. In addition to the regional knowledge which will emerge, this research is important because it will increase our understanding of long-term human adaptations to the humid tropics. It will also provide insight into how tropical forests may be used on a sustained basis. Given the involvement of graduate students, the research will contribute to the training of young scientists.